RIA: Micromechanics of Damage in Metal Matrix Composites

The research to be performed on this RIA award will investigate, theoretically, the influence of reinforcement cracking and interfacial debonding on composite flow strength, creep resistance and fracture toughness. Rigorous finite element analyses will be carried out to determine how the overall limit flow stress of a damaged composite depends on the volume fraction and shape of the reinforcing particles, the percentage of these particles which are damaged, and the characteristics of the matrix material.